Rural and American Indian School Educators as STEM Teacher Leaders

This Noyce Track 3: Master Teaching Fellowships project addresses the national need to develop highly effective science, technology, engineering, and mathematics (STEM) teacher leaders in high-need, rural communities. The project will support 26 experienced STEM educators designated as Master Teaching Fellows (MTFs) from geographically isolated, remote rural school districts across Montana. Specializing in science and mathematics, these educators will receive leadership development, professional growth opportunities, and support to lead both formal and informal STEM learning activities. The project aims to empower in-service teachers to become exemplary STEM leaders who draw on locally relevant knowledge and community context to enhance academic rigor and increase student engagement in STEM education for all learners.

Participating districts include Browning, Colstrip, Cut Bank, Hardin, Polson, Power, Pryor, Ronan, Saint Ignatius, and Superior public schools, as well as the private Saint Labre Schools. The project also partners with the nonprofit School Services of Montana (SSoM). Project goals include: (1) Enhancing the leadership competence of 26 in-service STEM educators over five years; (2) Integrating funds of knowledge and Montana’s Indian Education for All (IEFA) into STEM curricula and instruction; and (3) Empowering MTFs to lead formal and informal STEM activities tailored to increase student engagement in STEM learning. This project will undergo iterative evaluation guided by the following key questions: (a) To what extent have MTFs been successfully recruited across all partner schools, and how effectively have peer networks been established? (b) How effective are the tailored professional development opportunities in enhancing MTFs’ leadership competencies—including skills, knowledge, confidence, and collaboration? (c) In what ways have MTFs engaged with local schools, communities, and networks to identify and utilize funds of knowledge and IEFA-aligned curricula and instructional materials? (d) To what extent have MTFs led formal and informal STEM activities in their local schools and communities? (e) What impacts do MTFs have on student engagement, attitudes, behaviors, and academic performance in STEM? (f) What are the observed short- and long-term outcomes of curriculum implementation across partner schools? (g) How effective is the overall project model in supporting MTF development, and what refinements may be necessary based on participant feedback and evaluation findings? The results of this project will be disseminated at both state and national levels to inform scalable models of STEM teacher leadership. This Track 3: Master Teaching Fellowships project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.